Oceanographic Instrumentation 2004

0412658
McDuff
This award to University of Washington's School of Oceanography provides instrumentation to improve the oceanographic research capabilities of the research vessels Thompson and Barnes, operated by UW as part of the University-National Oceanographic Laboratory System research fleet. The specific items supported with this award include a new towed magnetometer and two new fluorometers for use with CTD systems. These improvements will be of substantial advantage to marine scientists using these two ships in their research during 2004 and future years.
***